Architectural Invariants of Evolving Systems

9710575 Software evolution is an important creative process, but it carries serious perils, particularly when the software is embedded in a critical enterprise and must evolve within its operational context. Since even a small change in the software can cause a large change in the behavior of the system, an enterprise that incorporates an evolving software system is susceptible to destructive and potentially disastrous effects, caused by inadvertent errors or by malicious attacks by programmers employed to maintain the software. The project attempts to tame such perils by ensuring that some of the architectural principles of a given system be maintained as invariants of its evolution. Invariants of this kind, which include permanent "firewalls," access-control regimes, and internal control discipline that ensure auditability, should be invaluable for safety-critical systems and, more generally, for systems that play some sensitive societal roles. The work will start from previously created systems Darwin-E and Moses, integrating the capabilities of the two, scaling up the approach, and exploring its use in a particular application domain. ***